Data Acquisition for Networked Smart Sensors

A planning meeting will be held to determine if the State University of New York at Stony Brook will become a research site of the existing Industry/University Cooperative Research Center for Embedded Systems. As part of the sensor revolution in the various applications of ubiquitous sensing vast amounts of data are generated and there is a need to have an efficient network of smart sensors to harvest these mixed signal data into aggregated digital signals for further processing in an embedded system or networks of embedded systems. A goal of this research site is to provide an infrastructure for university/industry interaction and collaboration in this area.

A result of joining the I/UCRC will be an increase in creation of new intellectual property, commercialization of technology, licensing revenue, and more collaborations among partners of the consortium.